Soft X-Ray Emission Spectroscopy

Experiments directed at understanding various aspects of the electronic structure of solids using two primary techniques are described in this proposal: soft x-ray emission spectroscopy and inelastic electron scattering spectroscopy. They have designed and built a soft x-ray emission spectrograph with a number of unique features. The sample chamber is a UHV system with an argon ion gun for cleaning and an Auger spectrometer to check sample surfaces. The toroidal holographic diffraction gratings focus the emission spectrum onto a high quantum efficiency- position-sensitive detector. They have recently added a sample entry airlock so samples can be changed without letting air in the chamber. The pressure in the sample chamber is in the 10 to the minus ten range. The inelastic electron scattering spectrometer was built several years ago, and has been used for a wide variety of projects. They are able to measure the momentum transfer dependence of spectral features revealing dynamical effects. In addition a wide energy range can be covered allowing a Kramers-Kronig analysis to be carried out.